Measurement and Interpretation of Chlorofluorocarbon Distributions in the Tasman Sea (WOCE Hydrographic Section P6W)

In this project, the PI will collaborate with PI's from two other institutions to measure Chlorofluorocarbons (CFC's), F-11 and F-12, from water samples collected on three separate legs of a hydrographic cruise along 32|S in the Pacific from Chile to Australia as part of the World Ocean Circulation Experiment (WOCE) Hydrographic Program (WHP) (referred to as WOCE line P-6). This particular project will focus specifically on the western portion between New Zealand and Australia. Subsequently, similar data will be collected on a meridional line along 177|W (P-14C), on a cruise immediately following P-6. Data will be used to examine ventilation and circulation of water masses found in the western basin of the South Pacific Ocean.